Methods for Constructing Binary Codes from Reed-Solomon Codes

This project addresses the problem of determining the best way to map the larger-alphabet Reed-Solomon codes into binary codes, thus generating binary codes with important algebraic properties. Vector expansions with various bases will be evaluated, especially those which produce self-orthogonal binary codes. The burst-error correcting capabilities of the codes and complexity of decoders will be examined.